Proposed Joint Japanese/American Workshop on Future Trends in Logic Programming

A three day workshop on future trends in logic programming will be held in Argonne Illinois, October 11 thru 13, 1989. The workshop will be coordinated by Argonne National Laboratory and by the Institute for New Generation Computer Technology (ICOT) of Japan. The objective is to provide an open forum for discussion between American and Japanese researchers on recent advances in logic programming and on the impact of developments in deductive databases, artificial intelligence, and multiprocessing. The workshop will feature 25 lectures on such topics as multiprocessing, constraint logic programming, knowledge representation, and the logical foundations of programming. Participants will also be given ample time for informal and open discussions. It is expected that after the workshop is over, researchers will collaborate on projects in logic programming research. Thus the workshop will have the long term benefit of promoting scientific advances in a spirit of healthy cooperation.